Postdoctoral Research Fellowship in Plant Biology

This is an individual award for the Postdoctoral Fellowship in Plant Biology. The applicant received his Ph.D. from Harvard University in molecular genetics of maize B-chromosome. He plans to carry out his postdoctoral fellowship research in the laboratory of Dr. Virginia Walbot at Stanford University. His research entitled "Cold Stress Mechanisms in Maize" will broaden the applicant's scientific training into plant physiology and environmental regulation of gene expression in plants.